Mathematical Sciences: Scientific Computing Research Environments for the Mathematical Sciences: Enhancing Statistical Analyses Using Dynamic Graphics

The Department of Statistics at The Ohio State University intends to purchase a high-resolution color workstation and imaging system to be dedicated to the support of research in the mathematical sciences. The equipment will be used in several new and ongoing research projects, including in particular: 1) Graphical Methods for High Dimensional Stochastic Dynamical Systems by L. Mark Berliner 2) Dynamic Analysis of Hierarchical Bayes Models by Mario Peruggia and Thomas Santer 3) Dynamic Graphical Predictions in Multistate Survival Models by John Klein 4) Confidence Ellipsoids for Bioequivalence by Jason Hsu All Four projects require the use of a high-resolution color graphics system with the ability to make, display and record animated sequences and still images.